Combining INSAR and GPS Measurements of Active Tectonic Deformation within the Arabia-Eurasia Continental Collision Zone

Reilinger
0106571

This project will use INSAR (interferometric synthetic aperture
radar) and GPS (Global Positioning System) measurements to monitor
detailed patterns of deformation in the continental collision zone in
eastern Turkey. The project will take advantage of the synergistic
aspects of these two techniques. In addition to providing
quantitative constraints on the kinematics and dynamics of the early
stages of continental collision, the investigators anticipate that this research
will result in new and improved tools for combining INSAR and GPS for
monitoring secular deformation of the Earth's surface.